Gravitational Radiation from the Dynamics of Compact Objects

One of the most exciting frontiers in general relativity is the direct detection of gravitational radiation from astrophysical sources. A number of detector systems are currently in various stages of planning and development both here and abroad. Notable among these is the LIGO detector, recently funded by Congress, which is expected to be operational before the end of this decade. On the theoretical side, much activity is focused on calculating the gravitational waveforms expected from various sources. Understanding many of the most interesting sources is believed to require large scale numerical simulations. This research will develop two 3-D hydrodynamical codes and apply them to calculate the gravitational waveforms emitted from several astrophysical sources. The Eulerian code will study stellar collapse and rotational instabilities, while the fully Lagrangian code will model the collision and coalescence of neutron stars. Both codes will use Newtonian and post-Newtonian gravity including gravitational radiation reaction. The development of two independent codes will allow cross-checking and intercomparison of results; this is important to verify that the codes produce the correct physical behavior. The resulting waveforms are expected to be of considerable interest with regard to the experimental efforts to detect gravitational waves.